Integrating Research Ethics into the Introductory Psychology Course Curriculum

9310458 Fisher This two year project will develop, implement and evaluate an ethics education curriculum in introductory psychology. The curriculum will provide the students with knowledge and skills which can help them identify ethical issues in human subjects research, consider moral ambiguities which arise within various experimental contexts and generate resolutions sensitive to alternative ethical approaches to specific research designs. Classwork wiill expose students to cases illustrating research methodologies of increasing ethical complexity, in major areas of scientific inquiry in the field of psychology. The case studies will provide students with experience in evaluating the applicability of scientific norms and the Ethical Principles of the American Psychological Association to a broad range of research problems. During the first year of funding, instructional materials and evaluation techniques will be developed and piloted, followed by a 2-day summer faculty workshop. During the second year, the ethics education curriculum will be incorporated into introductory psychology courses at Fordham and Loyola Universities. Evaluation of the project will focus on faculty and student satisfaction with the clarity, difficulty level, and relevance of the curriculum as well as knowledge and skills in ethical reasoning gained by students. ***